2nd U.S.-Asia Conference on Engineering for Mitigating Natural Hazards Damage (EMNHD-2), June 17-22, 1991, Jakarta, Indonesia

The Second United States-Asia Conference on Engineering for Mitigating Natural Hazards Damage (EMNHD-2) will take place on June 17- 22, 1991, in Jakarta, Indonesia. The focus will be on extreme winds, floods, earthquakes, landslides, other ground failures, and volcanoes. The EMNHD-2 will be one of the many activities taking place during the International Decade for Natural Disasters Reduction (IDNDR) that emphasizes the need for national, regional and international efforts for diminishing life and economic losses, and for mitigating the damages produced by natural extreme events. Keynote speeches, lectures, papers and panel discussions will highlight regional and local natural hazards problems, engineering research and practice addressing these problems, research needs, transfer of knowledge, and possible cooperative projects between the United States and the Asian Countries. Proceedings of the conference will be published and the final report with recommendations for research will be distributed to researchers, practicing engineers, planners and appropriate government agencies.